AF:SMALL:Sparse Geometric Graph Algorithms

Many real-world problems can be modeled by geometric graphs: systems
of vertices that represent geometric objects and edges that represent
connections or interactions between pairs of these objects. For
instance, the vertices of a road network may represent intersections
or junctions of roads, while the edges represent the segments of road
between two consecutive intersections. Although these graphs are not
planar (a road can cross a bridge without intersecting the road beneath), such crossings are
uncommon, and the project will investigate ways of exploiting that
sparse crossing structure to efficiently solve problems such as route
planning on road networks. Similarly, the project will investigate the
structure of the underlying geometric graphs, and the use of that
structure to develop efficient algorithms, for other problems that
include the visualization of hierarchically clustered networks,
pattern mining in social networks, splitting large scientific
simulations into smaller subproblems with low amounts of interaction
between the subproblems, the analysis of mechanical systems of rigid
parts connected by hinges, the design of maps that distort geographic
areas to display other types of quantitative information, and the
visualization of overlaps between fragments of DNA sequences.

The project proposes attacks on a large collection of problems from
application areas where sparse geometric graphs naturally arise. The
project suggests a model for real-world road networks in which a
derived graph of edges and their crossings has bounded degeneracy, and
seeks to investigate how sparsity properties of this crossing graph
affect the underlying road graph. The project seeks to determine
whether it is hard to recognize the graphs of 4-polytopes and simple
4-polytopes, and whether a recognition algorithm of the investigator
for a special class of 4-polytopes can be extended to a realization
algorithm. The graphs in this class have small separators, and the
project seeks to determine whether this is true more generally for
certain graphs derived from planar clustered graph drawings. The
project seeks efficient data structures that maintain low-degeneracy
orientations of a dynamic graph and use these orientations to quickly
find features in the graph, needed when fitting social networks to
exponential random graph models. Finite element meshes with bounded
aspect ratio for each element have small separators, but arbitrary
tetrahedral meshes do not. The project seeks intermediate conditions
on the shape of the elements in a mesh that would ensure the existence
of small separators. The graphs arising in kinematic analysis can be
characterized by linear bounds on the edges in each subgraph, and
recognized in quadratic time by a pebbling algorithm. The project
seeks more efficient algorithms to test the rigidity or degrees of
freedom of mechanical structures in subquadratic time. Subdivisions of
rectangles into smaller rectangles have applications in architectural
design, cartographic information visualization, and VLSI design. An
area-universal subdivision is one that can fit any assignment of areas
to its rectangles. The project seeks efficient algorithms to construct
area-universal subdivisions as well as subdivisions produced by a
recursive splitting process. Unit interval graphs arise in modeling
human preferences and in DNA physical mapping. Some problems that are
hard on broader graph classes can be solved efficiently on unit
interval graphs by representing the graph using a binary sequence and
applying a finite automaton to the sequence. The project seeks a more
general explanation of this phenomenon. In graph drawing, styles of
graph drawing on the basis that are somewhere-dense allow all graphs
to be drawn in that style with constant bends per edge while nowhere
dense styles require an unbounded number of bends per edge. The
project seeks a theory of sparsity distinguishing nowhere-dense styles
that require many bends per edge from those that require few
bends. Additional components of the project include questions on
diameter graphs and book thickness.